CAREER: Disorder Induced Optical Heterogeneity in Solution-based Straight/Branched Nanowires

In this CAREER award, co-funded by the Experimental Physical Chemistry (CHE) and Electronic Materials (DMR) programs, Prof. Masaru K. Kuno of the University of Notre Dame and his graduate and undergraduate students will use single particle spectroscopy to study the optical and electronic properties of linear and branched semiconductor nanowires (CdSe, CdTe, and PbTe). Experiments will focus on scanning tunneling microscopy (STM) spectroscopy, photoluminescence excitation, and the fluorescence intermittency of single nanowires. The aim of this work is to explore the effects of disorder (including phase defects), heterogeneity, and the surrounding medium on the behavior of solution-based nanowires.

Understanding the links between intrawire defects and the optical and electronic properties of nanowires will impact the further development of semiconductor nanowires as optical sensors and as photovoltaics. The proposed work is integrated with educational activities involving undergraduate and graduate students at the University of Notre Dame. These activities will lead to the development of a series of student-tested, undergraduate experiments and include the construction of an inexpensive, single-molecule microscope. Prof. Kuno also plans to publish an introductory textbook on nanoscience.